CPS: Medium: Collaborative Research: Body Area Sensor Networks: A Holistic Approach from Silicon to Users

Body Area Sensor Networks: A Holistic Approach from Silicon to Users
The objective of this research is to develop new principles and techniques for adaptive operation in highly dynamic physical environments, using miniaturized, energy-constrained devices. The approach is to use holistic cross-layer solutions that simultaneously address all aspects of the system, from low-level hardware design to higher-level communication and data fusion algorithms to top-level applications. In particular, this work focuses on body area sensor networks as emerging cyber-physical systems.
The intellectual merit includes producing new principles regarding how cyber systems must be designed in order to continually adapt and respond to rapidly changing physical environments, sensed data, and application contexts in an energy-efficient manner. New cross-layer technologies will be created that use a holistic bottom-up and top-down design -- from silicon to user and back again. A novel system-on-a-chip hardware platform will be designed and fabricated using three cutting-edge technologies to reduce the cost of communication and computation by several orders of magnitude.
The broad impact of this project will enable the wide range of applications and societal benefits promised by body area networks, including improving the quality and reducing the costs of healthcare. The technology will have broad implications for any cyber physical system that uses energy constrained wireless devices. A new seminar series will bring together experts from many fields (including domain experts, such as physicians and healthcare professionals). The key aspects of this work that deal with healthcare have the potential to attract women and minorities to the computer field.